Purchase of a Departmental Computer System

This award from the Chemistry Shared Research Instrumentation Program will help the Department of Chemistry at the University of Wyoming to acquire a graphics computer system. The areas of chemical research that will be enhanced by the acquisition include: 1. Charge-Transfer Complexes as Probes of Steric Congestion and Facility of Orientational Motion in Self-Assembled Monolayers 2. Unified Theoretical Treatment of Chemical Reaction Energy-Surfaces 3. Spider Silk Protein Structure Function 4. Electronic Structures of Solid State and Molecular Metal Sulfides 5. An Investigation of the Electronic Properties of Chelating Fluoroalkylphosphines 6. Remote Participation During Photooxidation at Sulfur Chemists carrying out frontier research are relying more and more on computers that are capable of handling sophisticated simulations, data analysis and graphics software. The need to accomodate multiple users on the single laboratory computer and multiple users on a single chemistry department facility can be met by a single solution: individual work stations for the majority of user needs and, for the remainder, ready access to other types of work stations and, ultimately, to a mini supercomputer.